NC State STEM Education Scholars Program (NC S3)

This Noyce Track 1 project aims to serve the national need of preparing highly qualified STEM teachers. Additionally, this project will support 21 mathematics and science scholars by deepening their understanding of the content they are teaching, as well as developing pedagogical strategies to engage all students in learning mathematics and science. The proposed project components will enable high-achieving prospective teachers to become secondary STEM teachers with extensive expertise in STEM content and effective pedagogical strategies.

This project at NC State includes partnerships with Wake County Public School System, North Carolina Central University, and Wake Technical Community College. Project goals include recruiting, preparing, and retaining 21 new STEM teachers. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation question(s): (a) How effective is the program in recruiting and preparing scholars to be STEM teachers? and (b) In what ways does the project impact the retention of scholars in teaching careers? The results of this project will be disseminated to help enhance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.